Soft Matter Systems for Selective Ion Transport

NON-TECHNICAL SUMMARY:
Polymer electrolytes are flexible, plastic-like solids that can carry electric charge by allowing ions to move through them. They are a key ingredient in wearable and implantable health sensors for microelectronics used in biotechnology, in next-generation safe batteries and in advanced membranes that recover critical minerals. Despite their importance, the basic rules that govern how ions move through these soft materials, and how the materials behave at the surfaces where they meet electrodes, are not yet well understood. This project will establish those rules. The research team will design new families of polymers in which the molecular shape can be varied in a controlled way, and they will measure how each variation changes the way ions are transported and how the material behaves at electrode surfaces. To accelerate discovery, the team will use a machine learning platform for polymer informatics and will populate it with the team's own laboratory data. By combining laboratory measurements with computer-based screening of candidate materials, the project will identify general rules that connect a polymer's chemical structure to its real-world performance. This project strengthens the position of the United States in the domestic manufacturing of advanced materials, in microelectronics/semiconductors, and in the use of artificial intelligence for science. The project trains a graduate student in modern polymer chemistry and machine-learning-guided discovery. It also continues the team's "March Materials Madness" outreach program, which brings hands-on demonstrations of materials science to elementary and middle school students and broadens participation in science.

TECHNICAL SUMMARY:
This project will establish predictive design principles for solid polymer electrolytes by systematically connecting molecular architecture, ion transport, and interfacial behavior. The work is organized into three integrated aims. Aim 1 will design and synthesize three classes of model polymer electrolytes with independently tunable variables: brush polymers built on flexible polysiloxane backbones with varied side-chain chemistry and graft density; core-sheath polymers in which an ion-conducting core is surrounded by a mechanically robust or fluorinated sheath; and single-ion conductors with covalently tethered anions. Synthesis will use thiol-ene click chemistry and RAFT polymerization to control side-chain identity, length, and density. Aim 2 will characterize ion transport and interfacial behavior across the resulting libraries using a selection of methods including impedance spectroscopy, steady-state polarization, and linear sweep voltammetry, multinuclear solid-state NMR, infrared and Raman spectroscopy, and small-angle and grazing-incidence small-angle X-ray scattering as well as X-ray photoelectron spectroscopy, time-of-flight secondary ion mass spectrometry, nanoindentation, and atomic force microscopy. Aim 3 will validate the resulting design rules in a thin-film battery testbed that uses model intercalation cathodes and a redox-polymer cathode platform, with proof-of-concept demonstrations of selected lead polymers. A project-specific database from the team's experimental measurements will be used to predict properties and to identify composition-property and morphology-property trends that direct the next round of synthesis. The project will train students in modern polymer chemistry and machine-learning-guided discovery. It also continues the team's "March Materials Madness" outreach program, which brings hands-on demonstrations of materials science to elementary and middle school students and broadens participation in science.